Psychological Influences on Physician Practice Decisions

This proposal sets forth an approach for developing and testing a causal model that will link health care resource utilization with physicians' interpersonal styles and cognitive and emotional responses. The topic is considered to be important for both theoretical and applied reasons: from a theoretician's perspective very few studies have successfully linked personality variables with revealed decision behavior, and from a practitioner's perspective it would be very useful to understand why some physicians use more, or use more expensive, health care resources than do other physicians. Earlier work by the principal investigator has demonstrated his ability to conduct this type of research, and the focus of this proposal on questions of generalizability, reliability, and empirical validation fits extremely well with the overall goals of the DRMS program.